PostDoctoral Research Fellowship

This award is made as part of the FY 2014 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Karol Koziol is "Functoriality of Pro-p-Iwahori-Hecke Algebras in Characteristic p." The host institution for the fellowship is the University of Toronto, and the sponsoring scientist is Dr. Florian Herzig.

This award is being supported by funding from the Office of International and Integrative Activities, International Science and Engineering Section, International Postdoctoral Fellowship Fund.